The Three Dimensional Structure and Fate of a River Plume

0096551/O'Donnell

Primarily observational in nature, this project is a study of the
structure of the velocity and density fields along the frontal boundary
of a freshwater river plume, together with measurements of mixing at the
base of the plume during the reversal of the tide. The data from
observations at the edge of the plume will be used to test the validity
of predictions extrapolated from laboratory results, and to improve the
parameterization of lateral mixing in a numerical model of a freshwater
plume. Estimates of mixing across the base of the plume will be derived
from a study of the salt budget in a 100,000 square meter box, together
with microstructure profiles within the box. These estimates will be
used to test the hypothesis that small river plumes are mixed away
vertically, shortly after the turn of the tide, as a result of the build
up of strong vertical shear at the base of the plume.